Thermoluminescence Dating of Loess from South Island, New Zealand

The objective of this project is to construct the first comprehensive loess chronology for South Island, New Zealand. About 85-90 regions will be collected. Dating analyses in the TL laboratory in Bellingham will be conducted. This project will build upon the previous detailed testing of TL dating methods conducted by the PI on loess from North Island. Further test will be conducted on a few known-age South Island Loess samples (remote from sources of volcanic feldspars in North Island), and extensive applications of reliable partial-bleach procedures will be made to several undated key loess sections throughout South Island. The resultant loess chronology will be related to the development of associated Quaternary features such as marine terraces, glacial outwash deposits and river terraces. TL dates for such features and for several buried soils in the loess sequences will reveal the timing of environmental changes in much of South Island, in the targeted time window of 20-200 ka.